MSEN Summer Scholars Program

The University of North Carolina Mathematics and Science Education Network (MSEN), 1988 Summer Scholars Programs will be a major component of MSEN's Pre-College Program in mathematics and science for historically underrepresented students. The MSEN Pre-College Program is an academic enrichment program that has its goal graduating minority and female students from high school with sufficient interest and preparation in mathematics, science and English to pursue math or science based fields at the university level. Summer Scholars Program activities will be offered to 320 junior and senior high (grades 7-12) minority and female students at four campuses within the statewide UNC System. The Summer Scholars Program is an integral component of the MSEN Pre- College Program through which participating students receive intense, experiential earning activities in mathematics, science and communications through small group and individual interaction. The Summer Scholars Program involves parents, teachers, and business and university scientists and engineers in the students development. Each Summer Scholars Program consists of four courses that meet daily for one hour--mathematics, science projects, communications, and instrumental enrichment--as well as field trips, meetings with university and business scientists, and program involving parents. The courses are academically intensive, challenging and enriching supplements to regular school-year courses. These courses enable students to improve and refine their knowledge and skills with individual and group instruction from teachers, participation in laboratory and field work, interaction with business and university scientists and engineers, and through team approaches to learning.